SGER: Dynamics, Identification and Control of an Optical Tweezer System

It is proposed to carry out an experimental and theoretical
program of research related to the dynamical modelling,
identification and feedback control of optical tweezers. By the
proper use of feedback control and identification techniques,
we plan to increase the accuracy and bandwidth of the optical
tweezer as a sensor by orders of magnitude. The testbed application
for these techniques is to use the tweezer to sense, in
real time, mechanical or chemical changes to a biological
molecule; for example, the mechanical ``unzipping'' of DNA.
Current techniques for such sensing are limited by the effects of
thermal noise (Langevin forces) and the internal dynamics of
the molecule itself. Techniques are proposed that incorporate
dynamical models of the molecule as well as recursive system identification
algorithms to estimate the parameters of trap-molecule interaction
in the presence of significant background noise. The proposed
research program will consist of developing appropriate models for
molecule-trap interaction, feedback control and identification,
and experimental testing of the algorithms on the existing and
operational optical tweezer instrument in the PIs laboratory at
UCSB.